Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750135 Leslie Pray This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "A field study of genetic variation and population structure in New England salamander communities." Contextual analysis is being used to estimate selection among clones, selection between clones and their parental species, and selection among pond communities in New England populations of the unisexual salamander Ambystoma laterale-(2)jeffersonianum. Clones and clonal variants are identified by allozyme and DNA data, and fitness data are collected in the field.